Wave Chaos in Ocean Acoustics

It is proposed to conduct a series of numerical simulations to try to understand and quantify how the chaotic behavior of high frequency underwater acoustic waves affects our ability to predict the ray trajectories of the corresponding lower frequency wavefield.